Mathematical Sciences: Twistors, Complex Manifolds, and Differential Geometry

The principal investigator will study construction of constant scalar curvature Kaehler manifolds of complex dimension 2 by two different methods. The first of these involves a generalized Gibbon-Hawking ansatz, while the second uses the Banach space inverse function theorem applied to Kaehler potentials with point singularities of conormal type. He will also study global deformations of complete non-compact Riemannian manifolds with quaternionic holonomy. Lastly, he will investigate the global structure of the universal curve for Riemann surfaces with spin structure. In this project, the principal investigator will analyze complex manifolds which relate to twistor and string theory. These mathematical theories have been used to explain some of the behavior of subatomic particles. Manifolds are mathematical objects which include regular curves and surfaces as examples. Both of these examples are based on multiple copies of the real numbers. In this study, manifolds which are based on copies of the complex numbers, instead of the real numbers, will be used to analyze several questions arising from physics.